Conference 'Continued Fractions: From Analytic Number Theory to Constructive Approximation' to be held May 20-23, 1998, in Columbia, Missouri

Abstract Lange/Kalton/Gesztesy This award is to partially support a to be held at the University of Missouri, May 20-23, 1998. Its focus is the central role of continued fractions as a common interdisciplinary bridge between mathematics, mathematical physics, and approximation theory.